Connection to vBNS for Ohio University

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS-3 connection to the vBNS. Applications involve virtual manufacturing and materials processing, on-line EEG data analysis using nonlinear methods, long-term study of TCP/IP (Internet) based applications on high-speed satellite networks; data transfer of nuclear and particle physics research being conducted on an international level between Ohio University and the Thomas Jefferson National Accelerator facility. Collaborating institutions include NASA Lewis Research Center, the Jefferson Lab, and the Children's Medical Center in Cincinnati.